Preconditioning, analysis, and applications of numerical algebraic geometry methods

Numerical algebraic geometry involves the use of numerical methods to extract
data from ideals about the corresponding varieties or schemes. This area has
grown rapidly over the last 20 years and has found applications in many areas
of science and engineering. This grant is funding four projects in the area
of numerical algebraic geometry. First, the PI and his students will
investigate several forms of preconditioning for homotopy continuation,
including algorithms for finding (near-)optimal multihomogeneous and linear
product start systems, as well as the use of dual bases to reduce the number
of paths tracked to "bad" endpoints. Second, the PI and several collaborators
will work on three application areas: exceptional mechanisms (via fiber
products), software in Macaulay2 for algebraic geometry-related applications,
and software for repeated parameter homotopies. Third, the PI will work on
analyzing the complexity of numerical algebraic geometry algorithms. Finally,
the PI and several collaborators will continue to work on methods to extract
information about real algebraic sets both from standard continuation methods
and from Khovanskii-Rolle continuation.

Polynomial systems of equations arise in many places throughout mathematics,
science, and engineering. An entire mathematical field - algebraic geometry -
grew out of the need to find solutions to these sorts of equations. Until the
1960s, though, there was no known general technique for solving such systems
of equations. The methods developed in that era require too much memory to be
effective except for relatively small problems. More recently developed
methods - the numerical methods of Sommese, Verschelde, Wampler, Li, and
others, now collectively known as numerical algebraic geometry - allow for the
solution of much larger polynomial systems, opening the application of
algebraic geometry methods to a wider class of problems. However, there is
still much to understand about these numerical methods. The goals of this
project include addressing four open problems in this direction. This work
includes the development of techniques to streamline some of these
computations, the implementation of valuable algorithms in popular and useful
software packages, a careful analysis of the computational costs associated
with the computational methods in this field, and the continued effort to
extract useful real-world data from the data provided as output from these
methods.